Effect of Redundancy in Arithmetic Operations on Processor Cycle Time, Architecture, and Implementation

This is joint project between UCLA and UC Irvine whose objective is the development of faster processors. The study concentrates on the effects of redundant arithmetic in reducing critical paths in the processor. Redundant arithmetic eliminates carry chains in adders, making addition a totally parallel operation. Consequently addition and other operations are speeded up. However, redundant arithmetic imposes overheads on other operations such as logical operators, shifts, and addressing. The objective of this research is to carry arithmetic redundancy as far as possible, and to analyze its effect on all aspects of the processor. Alternative algorithmic and architectural solutions are being developed and analyzed.